Mathematical Sciences: Matrix Methods in the Mathematical Sciences

8902121 Meyer/Plemmons This project involves the investigation of several problems in numerical linear algebra, with special emphasis on the topics of parallel algorithms for recursive least squares and the computation of stationary distributions for large scale Markov chains. Recursive least squares computations, including updating and downdating algorithms are especially important in signal processing and control. Markov chains have wide applicability as models for many problems in engineering and in the mathematical and physical sciences. Additional efforts will be made in the study of stability and conditioning problems associated with recursive least squares and Markov chain computations and more general eigenvector problems. An architectural aspect of this research will involve the identification of those features of contemporary and proposed multiprocessors which are best suited for implementing the algorithms under investigation. The goals of this research are to investigate the theoretical aspects of these computations as well as to develop new technologies for solving large scale problems in an efficient and stable way.